VIII Symposium on Case Studies in Bayesian Statistics

Case Studies in Bayesian Statistics VIII is the eighth workshop in the
series that was begun in 1991. These workshops aim to advance
statistical practice by examining Bayesian methods in specific applied
contexts. The workshops are held in odd years at Carnegie Mellon
University in early fall. The eighth workshop is planned for September
16--17, 2005.

The objectives of the workshop, "Case Studies in Bayesian Statistics
VIII" is are to explore the interplay of statistical theory and
practice in the context of substantive scientific research; to promote
the continued development of Bayesian statistics by highlighting
problems in the sciences that require non-standard approaches; to
provide an opportunity for scientists and statisticians to present
their work in depth, highlighting both the scientific background and
the analytical approaches; and to encourage dissemination of the
findings presented at the workshop via well-documented and
peer-reviewed case studies. As it has evolved, this workshop series
has become an important meeting for younger researchers in Bayesian
statistics. The workshop aims to encourage young researchers,
including graduate students, to present their applied work; provide a
small meeting atmosphere to facilitate the interaction of young
researchers with senior colleagues; expose young researchers to
important challenges and opportunities in collaborative research; and
include as participants women, under-represented minorities and
persons with disabilities who might benefit from the small workshop
environment.